U.S. - Germany Cooperative Research: Spatial Cognition of the Environment: Processes and Structures

9815553
Montello
This award supports the PI, Daniel Montello, co-PI Mary Hegarthy, and a graduate student from the University of California at Santa Barbara as well as co-PI Barbara Tversky and a graduate student from Stanford University in a collaboration with Christian Freksa of the Department of Informatics and Cognitive Sciences at the University of Hamburg, Germany. The research focus is the description and explanation of mental processes and structures underlying behaviors such as navigation, spatial learning, and spatial language. The field of study is interdisciplinary and will involve geographers, psychologists, computer scientists, and linguists. The U.S. and German groups bring complementary capabilities to the enterprise. The German side specializes in formal and computational modeling and the U.S. group, in empirical human-subjects methods and theory. Each side's contribution will enhance the breadth of research of the other side, and will result in interactions between researchers in the several disciplines mentioned.